Production of Prototype Guidebooks for Designing Year-Long Integrative System of Pedagogy Seminars and Non-Teaching CO-OP Experience as Components of Teacher Education Programs

Title: Production of Prototype Guidebooks for Designing Year-Long Integrative System of Pedagogy Seminars and Non-Teaching CO-OP Experience as Components of Teacher Education Programs Two guidebooks are being produced which lay out principals for developing and implementing the following two components of a teacher preparation program: (1) a system of year-long pedagogy seminars commencing with the freshman year and held annually through the senior year for interactively introducing students to the precollege teaching profession, and (2) a non-teaching cooperative education experience for each student in a industrial or other non-classroom site which is related to the area of certification pursued. Drexel is planning, designing, and producing two guidebooks entitled: (1) Guide for Year-long Integrative Pedagogy Seminars: Early Introduction into the K-12 Teaching Profession, and (2) Guide for Integrating a non-Teaching CO-OP Experience into Teacher Preparation. These guidebooks are being disseminated to interested parties with follow-up electronic feedback made available.